The Integration of Material, Process and Product Design, A Conference on the 70th Birthday of Dr. Owen Richmond

9810096 Ghosh A conference is conducted focusing on six major areas in Mechanics and Materials: (a) crystal imperfections, (b) polycrystals and properties, (c) constitutive modeling, (d) plasticity and failure, (e) metal forming and casting, and (f) process and product design. The conference provides directions for industrial relevance of these topics. Current obstacles and constraints to tailoring material properties and to optimizing process and product designs are identified. ***